Equipment to Upgrade Physical Optics, Atomic and Nuclear Physics Laboratories

This project will improve and strengthen optics, atomic, and nuclear physics laboratory experiments currently offered to undergraduate physics majors. In this program, three existing experiments will be upgraded, and five new optics experiments and one new experiment each from atomic and nuclear physics will be added. Students will be introduced to methods and techniques used in the fields of lasers, optics, electro-optics, atomic and nuclear physics. The project objectives are achieved by providing hands-on experiences with state- of-the-art instrumentation. The project will improve the quality of instruction, stimulate student interest and provide opportunities for junior and senior level research projects.